Quantum Chemistry Without the Hartree-Fock and Born- Oppenheimer Approximations

David Z. Goodson is supported by the NSF Theoretical and Computational Chemistry Program to perform theoretical studies which will lead to the calculation of accurate energies eigenvalues for atoms and molecules. The supported research involves the extension and improvement of a newly developed theoretical approach based on dimensional perturbation theory, DPT, as well as the application and validation of the theory. The applications to be performed concern the total ground state energies for several small diatomic and one triatomic system. The research will also determine the molecular vibrations of selected systems. For the analysis of the vibrations, the usual Born-Oppenhiemer, BO, approximation which involves the separation of electronic and nuclear motions will not be used. Instead, the DPT will be used to simultaneously treat the motion of both electrons and nuclei. While the BO approximation is normally adequate, there are cases where the coupling of different BO energy levels is very strong and the approximation breaks down. The supported research on DPT may lead to a practical method for treating such cases. The theoretical determination of energy levels and, hence, of potential energy surfaces is a very important problem in theoretical chemistry and has occupied the efforts of a large number of researchers over a long period of time. It is a central problem because the energies of a system must be known in order to interpret the significance of various experimental spectroscopic measurements and to interpret and predict chemical reactivity. While there have been dramatic advances in the ability to determine these energies using traditional ab initio and density functional methods, it still remains a formidable computational task at the forefront of theoretical research. This is especially true for large systems and for systems which contain heavy atoms. It is not certain that the DPT methods which are the subject of the supported research will replace the traditional methods; however, this research is expected to give an understanding of their potential.